Special Minority Award (Physics)

This Special Minority Award will give the graduate student additional flexibility in pursuing his graduate studies and research initiation in Physics. His research interests include Quantum Field Theory, General Relativity, Astrophysics, Cosmology and Statistical Mechanics, fields which are strong at the University of Texas at Austin. This award will strengthen minority research participation in Physics.